RUI: Renormalized Period Integrals

The investigator proposes to study the renormalization of period integrals
on GL(n). More specifically, this project concerns the development of a
theory of truncation of GL(n) Eisenstein series, thereby leading to a
definition of renormalized torus integrals. Such results in turn make it
possible to compute the polar divisor of the integrals and therefore to
find unexpected functional equations of renormalized period integrals of
Eisenstein series.

This is a project in Number Theory, one of the oldest branches of
mathematics. The foundations of Number Theory lie in the study of the
positive integers. Some basic objects that have emerged in Number Theory
are automorphic forms, objects that possess surprising symmetries. This
project studies certain integrals of particular automorphic forms called
Eisenstein series. These integrals, if interpreted in the usual way, are
infinite, so part of the proposed research deals with reinterpreting these
integrals, using renormalization to give them a definite meaning. This has
already been carried out by the investigator in a special case, which gave
rise to a relationship with another renormalized integral that was
developed in a different fashion. More striking, however, was the
occurrence of an unexpected symmetry in four dimensions. The aim of this
project is to extend this technique of renormalization to the most general
case, and to look for generalizations of this unexpected phenomenon.